NeTS: Small: Enhanced Interference Alignment for Networks using Reconfigurable Antennas

Interference between wireless devices will become a serious bottleneck for future wireless networks as
they become more pervasive in our everyday lives. The traditional approach of dealing with interference
is to share limited resources, such as spectrum, among many users such that a given resource is used by
only one user at a time. The recent notion of interference alignment (IA) proposes a new paradigm where
several users can simultaneously send information by sharing the same resource. This new approach
results in increased network capacity where every user gets half the interference-free throughput. In this
research, the project team will leverage reconfigurable antenna systems to design and enhance
interference alignment techniques for multi-user wireless networks. Reconfigurable antennas are capable
of electronically switching between different radiation patterns (or 'states') in response to the needs of
the overlying communication link and network. In this regard, reconfigurable antenna systems represent a
significant new degree of freedom for developing interference management techniques. The project team
proposes new ways of using the antennas to enable more practical solutions for future multi-user
networks and also provide a software defined radio platform to enable further research within the
community.

While the vast majority of existing research in this area considers an antenna to be a monolithic 'black
box', the project team will develop and demonstrate new compact form-factor electronically
reconfigurable antenna technologies that are capable of providing pattern agility. This additional degree
of freedom allows for the dynamic selection of radiation patterns to seamlessly integrate with, and extend
interference alignment techniques. The first objective is to demonstrate how electrically reconfigurable
antennas can greatly enhance the sum capacity achieved via distributed interference alignment, especially
at low SNR, by improving the subspace design. The second objective is to demonstrate how blind
interference alignment can be practically achieved by combining antenna state selection algorithms with
multiple physical layer transmission schemes. The additional channel diversity provided by
reconfigurable antennas comes with an overhead to acquire information about the state of all the channels,
revealing a need for a strategy to select the optimal state and most importantly an ability to learn the
changes in the channel state in order to adapt. With these goals in mind, the project team will utilize
online learning based on multi-armed bandit theory to design algorithms to control and adapt the state of a
reconfigurable antenna system. For the multi-user network, the team will analyze the cost of learning
under an unknown statistical model of the channel and compare it with the oracle with full prior
knowledge. Finally, the team will focus on implementing the developed interference alignment algorithms
on Drexel's Software Defined Communications (SDC) testbed. The SDC testbed is based upon a Scalable
OFDM physical layer, which operates close to many different standards. The project team will develop
new blocks for precoding and decoding, cross-transmitter symbol-timing synchronization, as well as
implement more efficient synchronization techniques that require less data overhead. The proposed
combination of the Drexel SDC testbed with IA algorithms will result in a product that has high relevance
to the industrial and academic research communities. Special effort will be made to not only disseminate
research results through relevant conference and journal publication, but also through testbed technology
demonstrations. In order to extend the outreach of the proposed research beyond the research community,
high school students and teachers, specifically under-represented populations, will be invited to
participate in the PIs research laboratories through pre-existing educational programs. The developed
testbed will be used to develop demonstrations and laboratory-based course modules.